ARI-SA: Local Field Enhanced Nanostructured Scintillation Phosphors For Radiation Detection

0736172
Chen
Detecting highly enriched uranium (HEU), consisting of greater than 20% U-235, is a critical concern due its potential for use in nuclear terrorism. Although there have recently been significant improvements in the development of scintillator materials and numerous advances in our understanding of the basic physical processes governing the transformation of ionizing radiation into scintillation light, no current scintillator has the ideal combination of stopping power, light output, and decay time. This research has the objective of developing a novel kind of nanostructured phosphor for radiation detection.